Studies of Correlated Electron Effects in Anisotropic Metals and Superconductors

08/29/95 2 9805784 Agosta This experimental research project focuses on the correlated electron properties of highly anisotropic materials, including organic superconductors and molybdenum oxide bronzes. Highly correlated electron properties of interest include spin density waves, charge density waves, the quantum Hall effect and multiple order parameter superconductivity. The experiments utilize high magnetic fields, obtained at a unique in-house pulsed magnetic field facility, as well as at NHMFL. The studies also feature use of high pressure and low temperature. High magnetic field is used in part to quench the superconducting or other correlated electron state, allowing observation of quantum oscillations and other effects to probe the Fermi surface. The RF penetration depth is measured in addition to electronic transport properties. The results from this basic investigation may include fundamental new physical effects and also may provide insight into electron behavior in other systems including semiconductor microelectronic devices.This highly interdisciplinary project involves graduate students who pursue thesis research at both laboratory locations, and receive excellent training beneficial to a future career in industry, government or academia. %%% This experimental research project focuses on unusual and potentially useful electronic conducting materials, which differ from common metals such as copper and silver in two major respects. First, the are composed of organic molecules, or oxides of metals. Second, they have very different electrical conduction in different directions. The anisotropy of the electron conduction in some of these materials tends to favor one particular direction, so they are "one-dimensional"; in other cases planes are present which are highly conductive, and this is a "two-dimensional" conductor. The behavior of electrons under these conditions is often unusual, and this unusual behavior and the reasons for it are the topic of the research. The materials of interest in this project are mostly organic superconductors and molybdenum oxide bronzes. Measurements feature high magnetic fields, obtained at a unique in-house pulsed magnetic field facility, as well as at the NSF-supported National High Magnetic Field Laboratory (NHMFL) located at Florida State University. Measurements also feature use of high pressure and low temperature. The results from this basic investigation may include fundamental new physical effects and also may provide insight into electron behavior in other systems including semiconductor microelectronic devices. This highly interdisciplinary project involves graduate students who pursue thesis research at both laboratory locations, and receive excellent training beneficial to a future career in industry, government or academia. ***